Planning Meeting: Collaborative Research on Orientations Toward Law and Normative Ordering; Durham, New Hampshire; August, 1992

This research project involves a planning meeting for an international group of scholars in the field of legal socialization. The purpose of the meeting is to develop a research design for a collaborative, transnational data collection project on the subject of the relationship between legal socialization and legal/political change. The impetus for developing a research design was a conference on legal socialization held in March, 1991, in Paris, France. Preliminary discussions about a research design were held at the Law and Society Annual Meeting in Amsterdam, but the schedule did not provide sufficient time to develop a full fledged research design. It is still necessary to review and reach agreement on a number of theoretical and methodological issues. This planning meeting will include presentations, intensive discussion time, and provision for specific drafting tasks. The project meets all of the objectives of the special competition on "Global Perspectives on Sociolegal Studies."